Decentralized Control and Computations of Complex Systems

The main objective of this research is to develop new decomposition schemes for decentralized control and computations of complex systems. The schemes serve to identify weakly coupled groups of variables (subsystems) that can be considered independently as subproblems and their solutions combined in some way to come up with the solution of the overall problem. Epsilon decompositions will be applied to large plants composed of overlapping subsystems. The main motivation is that the decompositions can help in formulating decentralized control laws with overlapping information sets, which are superior to disjoint control laws, especially when control of complex power systems is considered.